SIPI Connections

9402302 Abbott This project connects the Southwestern Indian Polytechnic Institute over a 56 kbps line to the Internet throught the New Mexico Technet mid-level network. Faculty and students at the school will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicated and collaborate with colleagues at other institutions in pursuit of researcha nd educational projects. The award provides partial support of the project for two years.